Doctoral Dissertation Research: How Gender Talks: The Language of Women Doing "Men's" Work

ABSTRACT Ethnographic studies of women in traditionally all-male, working- class jobs demonstrate that such women must present themselves as masculine in order to be perceived as competent. Such studies repeatedly refer to women who talk tough, talk rough, women, in short, who talk like men. This study examines the speech of policewomen and policemen in Pittsburgh, examining their management of verbal conflict, lexical encoding of affect, pitch range and pitch dynamicity, and use of vernacular phonlogical variables to determine when and how women choose to talk in masculine ways. Questions considered include: Do policewomen employ the same verbal strategies for resolution of conflict as do policemen? When do policewomen and policemen manipulate inexpressiveness to legitimate their authority in the community, and what are the linguistic markers of inexpressiveness? Have women whose speech is perceived as masculine adopted more monotonic, less dynamic intonational contours? The study also considers the widespread finding that men are more likely to use vernacular phonological forms to project themselves as tough than are women of the same class, by investigating the following Pittsburgh vernacular variables: vocalization of /\/, neutralization of tense-lax vocalic contrasts before/\/, monophthongization of (al) and (aw), use of apical nasals for velar nasals in the morpheme -ing, and realization of voiceless and voiced interdental fricatives as stops. This study critically examines the common sociolinguistic assumption that although language varies across social contexts, social attributes like gender do not. In particular it focusses on the ways that linguistic projections of gender-typed characteristics vary according to speaker's occupation. Finally, the study suggests that rather than understanding the use of certain linguistic features as marking a social roles (e.g. understanding vocalization of /\/ as a male marker), sociolinguistics should explore how linguistic features are associated with certain linguistic styles (e.g. tough, masculine) that that are normatively associated with certain social groups, situations and occupations. The project then becomes to understand how individual speakers manipulate the available speech styles to project the social identities they wish to create for themselves.